"The Microbial World: Foundation of the Biosphere" Meeting of the American Society for Microbiology to be held November 3rd through 5th, 1995, Denver, CO

9527411 Staley The American Academy of Microbiology will convene a colloquium of leading scientists to determine how to proceed in a timely and expeditious manner to address the urgent and enormous task of understanding microbial diversity. Issues in microbial diversity that require particular attention are the following. How should microbial diversity be measured? How should taxonomic studies of poorly known phyla be encouraged? What activities are most important to assess? How can microbiologists coordinate their research activities with botanists and zoologists? What new technologies can be developed to enhance our study of microbial diversity? The meeting will bring together a highly select group of microbial biology scientists, including at least five botanists and zoologists also involved in biodiversity. The inclusion of botanists and zoologists in these discussions will help build necessary bridges between these two sets of disciplines and microbiologists. In addition, several European scientists will also be included in the proceedings who are participating in ongoing efforts in microbial diversity funded by the International Union of Biological Sciences and the European Economic Community. The objective of the colloquium is to develop a white paper report with an in-depth analyses of these important issues in biodiversity studies and with recommendations for a future plan of action. The final report and recommendations of the proceedings will be published and disseminated to the microbiological community, to industry, to policy makers who have concerns about biodiversity, and to the appropriate federal and international agencies. ***